ITR: Dynamic Cooperative Performance Optimization

Object-oriented programming languages, notably Java, are gaining broad use
because of their benefits, which come largely from their flexibility. But
this same flexibility makes Java programs more difficult to optimize in
advance. One sample collection of programs, optimized in advance, spent
40-95% of their time on an aggressive processor waiting for the memory to
provide data, illustrating the need to improve memory behavior. Future
processors will only make the problem worse.

The project makes an integrated attack on this problem, incorporating new
program analyses and optimizations, profile feedback, run-time techniques
including adaptive garbage collection algorithms, and ways of communicating
high-level predictions and observations of program behavior to the
hardware.

The project aims to design and build a compiler, run-time system, and
enhanced architectural and operating system features that react quickly and
gracefully to compiler predictions and actual run-time behavior to achieve
high performance. The goal is synergy via cooperation between the system
components versus solving each problem within an individual component.

While the research focuses on improving memory performance, the project's
envisioned framework is suited to a wide range of performance optimization
techniques, so the expected research results and software products have
broader impact.